Improving Process Stability of Anaerobic Biological Processes: A New Approach Using Porous Composite Membranes

9321873 Sengupta This is an award to support research on a control method for improving the stability of anaerobic biological processes used to treat wastewaters. The method is based on neutralizing the effect that intermediate biorespiratory products have on the alkalinity of the fluid being treated and providing for selective removal of heavy metals that have a toxicity effect on the biological species in the reactor. The porous composite membranes are suspended in the bioreactor. The membranes consist of entrapped, polymeric ion-exchange microbeads with covalently attached functional groups having a high buffer capacity and selectivity for heavy metals. Results of this project are expected to provide the basis for engineering design of anaerobic biological reactors that are amenable for treatment of industrial wastewaters characterized by large fluctuations of organic load, heavy metal content and alkalinity. Besides improved stability, the operating costs of treatment plants are expected to be significantly reduced from present levels by elimination of need for addition of buffer salts and regeneration of the composite membrane.